Efficient Sorting Networks

The importance of efficient sorting algorithms is widely acknowledged in many applications. This project is an investigation of the problem of producing fast n-input parallel sorting circuits. The model used is the popular sorting network. For extremely small n, the fastest sorting networks are hand-constructed. For intermediate n, the fastest networks are essentially those of Batcher. For extremely large n, the fastest sorting networks are those of Ajtai, Kimlos and Szemeredi. Improvements in all three situations are sought. For very small n, a modification of existing backtracking algorithms should result in viable networks with a slightly larger number of inputs. For intermediate n, Batcher's sorting algorithm will be modified to use larger building blocks. This approach is essentially a careful analysis of the divide-and-conquer strategy. For very large n, existing algorithms will be studied for potential improvements.